Rare Earth-Doped Waveguide Lasers

Recently there has been considerable interest in rare earth-doped fiber lasers. These sources exhibit very low lasing thresholds due to strong pump confinement, they are tunable, and they have exceptionally large gain bandwidths. These properties make them attractive sources for optical communications and short pulse generation. Unlike the fiber geometry, rare earth-doped waveguide lasers in a planar configuration offer the potential to integrate multiple components on a single glass (or crystal) substrate. The excellent transparency of glass, its resistance to chemical attack, along with its good mechanical properties and low cost make it an ideal material for this application. The primary thrust of the proposed work is the development of new active and passive rare earth-doped, channel, waveguide devices on planar substrates. Particular emphasis will be placed on the monolithic integration of multiple components including lasers, directional coupler filters and distributed feedback resonators. Device fabrication will proceed predominantly in special melts of neodymium and erbium doped, geranium-rich, alkali glass using thermal ion exchange techniques. Single mode waveguide lasers operating at 1.06 um, 1.3 um and 1.5 um, will be demonstrated and completely characterized. Single longitudinal mode behavior is to be achieved in the lasers using integrated distributed feedback structures. Fabrication of these structures will proceed either by corrugating the waveguide surface or by direct photoionization of germanium-oxygen defect centers in the glass. Both uniform and tapered DFB grating structures are to be considered. Second harmonic generation in channel waveguides fabricated in rare earth-doped, germanium-rich glass will also be investigated.